III: Small: Explaining heterogeneity within and across evolving networks

This project will develop novel methods for analyzing and modeling
heterogeneous dynamic networked data. Network data arises in a number of
application domains ranging from Internet of Things, cloud computing, software analysis,
neuroscience, biology, geography, to social sciences. Accordingly, network
analysis has emerged as a major paradigm for exploring complex processes
behind observed data. Compared to high dimensional data, analysis of network
data is more challenging due to interdependencies between entities, the
presence of attributes, and the natural evolution of networks over time. The
goal of the project will be to understand and model the heterogeneity of
behaviors in dynamic networks. The project will have a transformative impact
on big data problems that are enabled by a network-centric approach to
exploiting dynamic, heterogeneous data, such as brain networks. The project
will integrate research and education by introducing methods and results of the
project into courses and seminars, and train a diverse group of undergraduate
and graduate students.

The project's focus will be on heterogeneity in dynamic networks:
heterogeneity of node behaviors across network structure and time,
heterogeneity of the coupling of structure and attributes, and heterogeneity
across networks. Against this backdrop, the project will consider the basic
problems of clustering (partitioning), classification/regression, decomposition
of networks into its basis elements, and the problem of explaining global
network behaviors by small network fragments. These problems will be
considered for a single network and for multiple networks. Within a network,
heterogeneity is observed when nodes or clusters exhibit different behaviors,
for instance due to hidden or missing data. Across networks, heterogeneity is
observed in the diversity of subject populations or among network instances.
The first research thrust will apply spectral theory for partitioning attributed
and dynamic networks. The second research thrust will apply convex
optimization to find clusters while tolerating heterogeneity across network
structure and time. It will also develop methods for estimating graphical models
for multiple dynamic networks. The final research thrust will focus on the
discovery of succinct sub-networks that are predictive and that evolve
concurrently with the underlying networks.